Synthetic Self-Assembling Polyimides

9807470 Shimizu In nature, macromolecular self-assembly is nearly an ubiquitous process, yielding complex three- dimensional structures and architectures. Flexible polypeptides and polysaccharides are folded and assembled into materials of exemplary mechanical, recognition, and catalytic properties. Proposed are three synthetic polyimides that similarly self-assemble into structures of precise dimensions and organization. The resulting, hexagonal array, interwoven sheets, and conformational switch are unique due to their nano-scale dimensions, highly organized topologies, and entirely synthetic composition. As a consequence, novel biomimetic and materials properties are anticipated. Envisioned are applications as: (1) models to understand the fundamental process of biological self-assembly; (2) rationally designed materials such as organic zeolites and conductors; (3) materials with biomimetic properties such as replication, specificity, and templating abilities. However, the most attractive attribute of the proposed polymers is ease and low cost with which these self- organizing materials can be synthesized. All three polyimides are fashioned from a similar framework composed of 1, 3- disubstituted benzenes linked by 1,4,5,8-naphthalene diimides. These synthetic polymers can be prepared by conventional polymerization and processing techniques from inexpensive starting materials. Complementing this synthetic economy is the efficiency of the self-assembly process. Spontaneously, arrays of intra-and intermolecular contacts are formed with high fidelity and specificity. Finally, the synthetic accessibility of the polyimides and highly coherent structures of their assemblies enable their rational elaboration into more complex extended architectures and materials. %%% This project should enhance our ability to design novel materials through self-assembling processes in a direct and benign way exemplified by nature. ***